Mathematical Sciences: Topics in Probability

The investigators will study a collection of problems in combinatorial analysis of stochastic structures on trees. Specific topics include random fields and discrete spatial processes, Markov properties of random fields, critical random walk in random environment on trees, and random fields on trees and conditioned branching processes. These topics are in the field of probability theory.